A Comprehensive Calculus Project for Comprehensive Universities

9450760 McKnight Reformed calculus materials developed by Ostebee and Zorn at St. Olaf College are being used in the teaching of first year calculus at The University of Oklahoma. Faculty in the Department of Mathematics are extending this model of calculus reform by undertaking tasks representing adaption, assessment, faculty and graduate student development, components for pre-service teachers, and dissemination. The St. Olaf first-year calculus model is being adapted and extended to fit a large, comprehensive university setting including the range of difficulties implied by this (large lecture with recitation, GTA-taught classes, honors classes in an open-admission university, etc.). The project includes the development of a model for GTA training along with supporting materials and training videotapes, a model for faculty development, including materials, suitable for sustaining such a calculus program, and careful assessment of student performance. Reports on assessment and evaluation will be useful to other comprehensive universities seeking similar reforms. An important component addresses pre-service secondary mathematics students: adaptation of the GTA training materials for prospective mathematics teachers; training experiments involving pre-service students; participation in GTA training sessions; and, observations both in university classes and in a local high school which has adopted the St. Olaf's model for calculus. Dissemination plans include packaging materials for dissemination, production of written materials, and visits and locally held workshops. At least one monograph will be prepared for publication.